Timber: A Native XML Database Management System

The Timber project addresses the construction of a database system to manage large volumes of extensible Markup Language (XML) data. The goal is to develop a native XML database, in which XML data is stored directly, retaining its natural tree structure. At the same time, without mapping the data into relational tables, the objective is to obtain all the benefits thereof, such as declarative querying and set-at-a-time processing.

To accomplish this objective, the Timber project uses a bulk algebra for the
manipulation of trees as a basis, and creates a principled implementation of a modular, algebraic framework for the optimization and evaluation of queries against XML data.